Chemical Conversion and Furnace Construction

9417499 Hillig The Principal Investigator wanted to build a special furnace to test out the conceived concept of the Reactive Vapor Infiltration Process. Molybdnum Silicide materials are to be used as the matrix materials and to be reinforced by fibers such as silicide as high temperature composite materials. Molybdnum Silicide is to be made from activities. A rapid heating high temperature furnace which can have controlled gaseous or vacuum environments and a working temperature of 1800oC, is needed for the Reactive vapor Infiltration Process. %%% The proposed work consisted of building a rapid heating furnace, capable of reaching 1800oC and maintaining controlled gaseous or vacuum environments. It will be used to test out the concept of reactive Vapor Infiltration Process can be very significant in many important industrial developments. ***